Deep Water Formation and Water/Ice Interaction in the Weddell Sea Studied by 180. Helium Isotope and Tritium Measurements

This project is one component of an integrated oceanographic research program that will be carried out from a camp maintained on the pack ice of the western Weddell Sea in the 1992 austral winter. One of the major objectives of the research project is to obtain the first representative hydrographic and tracer observations in this region, where deep and bottom water mass formation processes are active. The specific objectives of this project are to collect oxygen-18, helium isotope, and tritium samples at the camp itself and on several sections crossing the Weddell Sea continental slope. The observations will be used to create in integrated chemical tracer data set which will be used to model the formation rates and processes of Weddell Sea deep and bottom water.